Collaborative Research: Continuation Time-Series Responses to a Mid-Ocean Ridge Volcanic Event: Juan de Fuca and Gorda Ridges

This project continues support to maintain and improve standby readiness to mount rapid and follow?up responses to a mid?ocean eruptive events along the mid?ocean ridge systems of the northeast Pacific. The project is composed of several cross?disciplinary components, including the geophysical interpretation of remotely detected seismic events, physical, geochemical and geomircobial oceanography, microbial diversity and community dynamics of event plumes, and geology, geochemistry and biological colonization of new seafloor lava flows.